RIA: Efficient and Accurate Prediction Systems for Large Scale Problems

Neural network technology has the potential to solve an impressive variety of today's technological problems which conventional computers are quite powerless to deal with. The first applications of neural networks technology have been limited to relatively small problems, and therefore systems scaling was not a primary issue. Neural networks for real-life problems usually consist of a large numbers of interconnected processors working in parallel. The objective of this proposal is a deeper investigation into the computational and learning abilities of neural networks for such large scale problems. In particular, the computational models and topologies best suited for large scale problems, and efficient and accurate learning techniques for such resource- bounded parallel machine will be investigated. The results will be evaluated on two challenging real-life problems from electrical engineering and molecular biology (mixed-signal integrated circuits testing and protein structure prediction). The proposed work is based on recent results: (1) a discrete multivalued neural networks model that can be used as a tool for reasoning about the computational scaling abilities of various neural network architectures; (2) efficient neural network learning algorithms that generalize well starting with pre-existing symbolic knowledge and incorporating additional constructive learning from examples.//